Enhancement of Mechanical Engineering Education with Workstation-Based Computer-Aided Engineering

A workstation laboratory is being equipped with eight workstations and a file server. With appropriate scheduling and video monitor presentations, the laboratory will serve the needs of the mechancial engineering student body. The workstation laboratory is being integrated throughout the undergraduate curriculum. Problem visualization via video monitors begins the sophomore year. This is followed by hands-on use of software packages in the junior year and then creative design opportunities via Computer-Aided Engineering in the senior year. This project is being matched by an amount equal to the award.